Neuronal Activity: Role in Postlesion Neuronal Plasticity

An extensive body of research indicates that following central nervous system injury, there is often a naturally- occurring compensatory reorganization of surviving neural pathways. The behavioral consequences of such reorganization are largely unknown, although some types of reorganization seem to contribute to functional recovery. In these cases, however, it is not clear exactly how the reorganization contributes to the recovery that occurs. Dr. Steward's research program, which has been supported by the National Science Foundation for the past 13 years, has evaluated the functional consequences of the reorganization which occurs in the hippocampus of the rat after damage to the entorhinal cortex, one of the principle inputs to that brain region. The currently proposed experiments will evaluate three hypotheses: (1) that fibers reinnervating the hippocampus contribute to behavioral recovery as a result of the information they convey, (2) that behavioral recovery results from a return of excitatory driving and the consequent increase in activity of the denervated cells, and (3) that behavioral recovery depends on both the restoration of excitatory drive and on the information conveyed by the reinnervating fibers. This research will determine whether neural activity plays a role in inducing synaptic reorganization. It represents an important step toward understanding how to manipulate the response of the nervous system to injury.